Hemispherical Conference of Infrastructure: A Preliminary Activity for the Establishment of a North South Center in Puerto Rico

This project will conduct a Hemispherical Conference to discuss infrastructure problems common to all nations and to establish the foundation for a Western Hemispherical Center for the exchange of information and cooperation of research activities.